A Computer Component for Main-Track Calculus

This project will support a computer laboratory dedicated to lower-division mathematics instruction at the University of Connecticut. It is being funded under the Instrumentation and Laboratory Improvement (ILI) Program, which has the stated goal of improving "the quality of the undergraduate curriculum by supporting projects to develop new or improved instrument-based undergraduate laboratory and/or field courses in science, mathematics, or engineering." The major thrust of this project will involve an effort to integrate computing into large lecture sections of a three-semester main-track calculus sequence. Regular laboratory periods will be scheduled and students will be asked to modify existing programs and to write new programs.